NUE: Overcoming the Geographic/Infrastructure Disadvantage of a Remote Small Research/Teaching Institution in Nano/micro-scale Engineering Education

This Nanotechnology Undergraduate Education (NUE) in Engineering program entitled NUE: Overcoming the Geographic/Infrastructure Disadvantage of a Remote Small Research/Teaching Institution in Nano/micro-scale Engineering Education, under the direction of Dr. Cetin Cetinkaya, at Clarkson University (CU), will develop a new undergraduate course with a strong hands-on component. This undergraduate course will complement and form a sequence with an existing graduate-level special topics course in Advanced Materials, which is one of CU's three research thrust areas. Utilizing a remote site within the NSF supported National Nanotechnology Infrastructure Network (NNIN) facility at Cornell University (CNF), the proposed multi-disciplinary course will educate undergraduate engineering students at CU in the fundamentals of nanoscale engineering, with an emphasis on sensor fabrication and design and link their exposure to the engineering/design/analysis concepts in the meso-scale to the small-scale world.